A Test of the Photometric Method for Measuring Redshifts

This award, made under th Small Grants for Exploratory Research program, will fund observations and data analysis to test the possibility of obtaining reliable redshifts by photometric methods. This technique, largely developed by Dr. Loh, remains controversial, and this research should clearly demonstrate its reliability, or lack thereof.